RUI: Reproductive Consequences of Maternal Stimulation

Many of the processes that shape the development of the nervous system and behavior occur during the early neonatal period. Dr. Moore has shown that perineal stimulation provided by mothers to their developing offspring during the course of a specific maternal behavioral pattern, has long-term consequences on their adult behavior. She has also shown that this maternal stimulation also produces changes in the central nervous system. Using an exciting and highly innovative approach, Dr. Moore will investigate how interactions between environmental stimulation and the hormones produced by the developing young work jointly to produce the enduring changes in the both central nervous system and behavior. She will concentrate on a sexually dimorphic nucleus in the lumbar region of the spinal cord. Using state-of- the-art anatomical techniques, Dr. Moore will investigate the role that cell death plays in regulating the observed differences in neuron number following variations in maternal stimulation. By systematically varying the mother-infant interactions in ways similar to those experienced naturally by the offspring, the effect that early stimulation has on individual differences within males and females, and sex differences can be examined. At present, little is known about the role of sensory input in development of sexual dimorphisms. Her systematic focus on external stimulation and normal sensory input is an excellent opportunity to weave functional, anatomical, and developmental questions togethers in a meaningful and mutually useful way. The outcome is likely to redefine our ideas about the sexual differentiation process than is now currently being accepted.